US-Brazil Dimensions of Biodiversity Research Catalysis Meeting

This award provides funds for a workshop in Atlanta, GA, from November 18 to 2, 2011, with the goal of bringing together U.S. and Brazilian scientists to establish international research collaborations that will advance biodiversity science. The research projects that are likely to come from this workshop will enhance international collaboration and provide opportunities for undergraduate and graduate students to have an international research experience.